Application of Semipermeable Membrane Devices (SPMDs) as Passive Monitors of the Environment of Antarctica

Form 7 Peer reviews were not required for this proposal because it is an Interagency agreement and a service agreement. The National Science Foundation (NSF) Proposal and Award Manual states in section 122 .2.(B) that peer review is not applicable for " services provided by another Federal agency in support of Polar Programs" 9314735 Petty The Fish and Wildlife Sevice will further develop and test lipid dosimeters or semipermeable membrane devices for use in Antarctica. The dosimeter is essentially a semipermeable plastic tube containing triolein (a lipid). The device is designed to be placed insitu in water and simulate the uptake of contaminants by aquatic biota. The contaminants in the lipid are extracted and analyzed by conventional analytical methods. The advantages of the technique are 1) deployment of the dosimeter is much simpler than collecting aquatic biota; 2)data between sampling locations are comparable whereas data from different species are not; 3). divers are not needed; 4) aquatic biota are not harvested; and 5). sample holding time are probably extend. ***